Annual Telluride Workshop on Neuromorphic Engineering: Telluride, CO 6/27/0407/17/04; 2004-2009

The Annual Telluride Workshop on Neuromorphic Engineering initially arose because of a strategic decision by NSF to facilitate the interface between Neuroscience and Engineering. The present project is a workshop that focuses on innovative approaches to the design and fabrication of artificial neural systems for perception, cognition and action, whose architecture and design are critically base upon a biological nervous system. The three-week long workshop includes lectures from key researchers in the areas of biological, computational, and engineering sciences, practical tutorials from state-of-the-art practitioners, hands-on projects, and special interest discussion groups. The specific goals of the workshop, over the next 5 years, include promoting the transition of scientific and technological results into practical real-world application, providing outreach to enabling communities to attract researchers in biomaterials, bioengineering, microsystems, and nanotechnologies, increasing collaborations with international neuromorphic research to further technologies and knowledge, extending critical neuromorphic infrastructure to develop concepts, software, and hardware that support learning and memory, incorporating neuromorphic concepts into emerging technologies such as computational media, neural interface and signal processing, and on-chip processing, coordinate K-12 mini courses in simple electronic and robotics. The workshop will facilitate interactions between junior and senior researchers, while educating the community, and enabling international collaborations in research and teaching.